CT-ISG: Router-Based Signature Generation for Zero-Day Polymorphic Worms

Yan Chen
Northwestern University
0627751
Panel: P060969

Abstract

Attacks are commonplace in today's networks, and identifying them
rapidly and accurately is critical for large network/service
operators. Most existing intrusion detection systems (IDSes) are
signatures-based. But such signatures are usually generated manually
or semi-manually, a process too slow for defending against
self-propagating malicious codes, or worms. To evade detection by
signatures, attackers may also employ polymorphic worms which change
their byte sequence at every successive infection.

In order to thwart a zero-day worm attack, it is essential to design
an automatic signature generation system against polymorphic worms
which may be deployed at the network gateways/routers and satisfy
the following requirements: network-based, noise-tolerant,
attack-resilient, and having efficient signature matching.

None of the existing work satisfy all the requirements above. Thus
the PIs design NAPOLEON( Network-based Attack-resilient
POLymophic-worm signaturE generatiON), a network-based automatic
signature generation system with all the aforementioned properties.
NAPOLEON has two components which complement each other: TOken-based
Signature Generator (called TOSG) and LEngth-based Signature
Generator (called LESG).

This project combines theoretical computer science with practical
network security research. The PI has extensive experience on
network anomaly/intrusion detection. The co-PI's expertise is in
theoretical computer science and algorithms and has a track record
of applying them to various applications including security.

This interdisciplinary research will have a strong impact. For
example, during the PIs' collaboration, they have found that certain
algorithmic techniques in bioinformatics are directly or indirectly
applicable to worm detection problems.